The Coach

Engineering-Other (59)
This project creates a website that provides writing samples, heuristics, and prompts to teach writing to engineering students. The web-based tool introduces engineering students to the process of writing widely-used classroom and work-place documents such as lab reports, project reports and memos. The tool, called "The Coach," guides students through basic writing activities such as prewriting, drafting, revising, and editing and prompts students to consider genre-specific details of audience, purpose, and message. The plan is to include The Coach within some of the writing requirement courses for engineering students at the partner institutions of the University of Alabama, the University of Texas at Tyler, and Bevill State Community College.